Collaborative Research: Drought in the Australian Outback: Milankovitch and Anthropogenic Forcing of the Australian Monsoon

ATM-9311303 Miller University of Colorado Title: Collaborative Research: Drought in the Australian Outback: Milankovitch and Anthropogenic Forcing of the Australian Monsoon The Lake Eyre Basin, an interior basin covering one sixth of the Australian continent, receives the vast majority of its precipitation from cyclonic disturbances associated with the summer monsoon. The Australian summer monsoon is strongly influenced by the Asian winter monsoon, the intensity of which is controlled by changes in solar radiation caused by variations in the Earth's orbit around the sun (Milankovitch effect). This award supports research designed 10 to develop an improved geochronology of lake-full events as a first-order test of the proposition that January insolation over the Tibetan Plateau can be as a proxy for the intensity of the Australian monsoon; 2) to produce an independent reconstruction of aridity for the last 150 ka across the basin, and reconstruct vegetation during the last lake-full interval (60-70 ka), using the isotopic composition of organic and inorganic molecules preserved in ratite eggshells (reflecting the proportion of C3 and C4 plants), and 3) to test the potential impact of vegetation change on climate by modeling the penetration of monsoonal precipitation into the Lake Eyre Basin with a high-resolution (3o grid) Global Circulation Model incorporating two different vegetation regimes.